Problems in Function Theory and Operator Theory

Abstract:

The applicant proposes to work on several related problems in function
theoretic operator theory and in Euclidean harmonic analysis. He plans to
use his recent work with Arcozzi and Sawyer as a basis for the study of
interpolating sequences in Besov spaces. He proposes to use phase space
methods to study eigenvectors of pseudodifferential operators and as well
as solutions to other extremal problems. He also plans to use his recent
work with Holland on the asymptotic behavior of Bergman kernel functions
as a starting point to investigate whether generalized Segal-Bargmann
spaces can be used to give quantum deformations of the plane. Finally, he
plans to investigate whether certain techniques that arose in recent work
on higher order Hankel operators have broader application in operator
theory. The work proposed will advance the understanding of the function
theoretic operator theory on spaces of holomorphic functions and of
operators arising in Euclidean harmonic analysis. It will also develop new
viewpoints and techniques that will have general applicability in those
areas.

More generally, the proposed work is at the interface of operator theory,
function theory, and harmonic analysis. The unifying theme of the work is
the systematic use of phase space methods, both as a technical tool and,
more importantly, as a unifying conceptual structure. Those tools and
that viewpoint have been very productive, both historically and recently,
of important new techniques in theoretical mathematics and of major new
applications of mathematics to science and engineering. The recent work
Lacey and Thiele on bilinear operators is an example of the first and the
impact of wavelet and related methods on signal processing is a
spectacular example of the second. One certainly expects that further
research in these areas will continue to produce important additional
contributions inside and outside of mathematics.